Theory of Types, ALGOL-like Languages and Concurrent Processes

The theoretical connections between operational and denotational semantics, and between semantics and logical theories, are being developed as a guide to programming languages design and correctness. Principal topics include: generalized type structures, especially polymorphism, in programming languages; semantics and formal correctness theory of ALGOL-like and object- oriented programming languages, and semantics of concurrent processes based on observational congruence.